Enterprise Wide Information Systems Intergration Conference for Establishing An Engineering/Management Curriculm and Research Agenda; Sept. 20-21, 1993; West Lafayette, IN

9312964 Moskowitz This project will support conference on Enterprise Integration to assess the state of the art, practice and direction of information technology and management in organizations for the purpose of establishing education and research agendas for their integration into management and engineering programs. The conference will focus on showcasing leading-edge practices, overviewing underlying technologies, examining the issues and challenges enterprise integration poses, and assessing its implications for education and research. A select group of leading practitioners, academicians, and other experts will participate in this two day conference. A conference proceedings will serve as a springboard to establish educational, research, and implementation agendas for infusing enterprise integration into university educational and research programs.